Acquisition of Core Instrumentation for Treatment Process Technology Research in Environmental Engineering

0116452
Speitel
This is a proposal to acquire several instruments to upgrade analytical facilities for environmental engineering research and education. The research is in the areas of separations, biological transformations, and chemical transformations. This research requires a diverse array of analytical measurements ranging from basic analysis of contaminants of regulatory concern to detailed analysis of particle characteristics, chemical intermediates, and microbial activity. The research is focussed on developing new and more efficient processes for in situ and ex situ treatment of water, soil, and air pollution. Five advanced instruments, field flow fractionation, an FTIR-Raman spectrophotometer, a zeta potential analyzer, a thermogravimetric analysis system, and capillary electrophoresis would be used in the area of surface chemistry research.